III:Small:Integrated Problem Diagnosis and Repair in Databases and Storage Area Networks

Databases are typically used as a subsystem in a larger system that
contains Web servers, application servers, and network-attached
storage servers. Such complex systems experience some form of change
all the time, e.g., an update to a Java module in the application
server, a statistics update in the database, or a RAID rebuild in a
storage volume. Such changes in different subsystems can cause an
overall performance degradation whose cause is hard to diagnose. The
diagnosis task is all the more daunting because enterprise
environments have isolated administration teams and tools for each
subsystem.

This project is developing an integrated tool called DIADS that
automates complex administrative tasks like problem diagnosis, what-if
analysis, orchestrating disaster recovery, and online tuning when a
database is used as a subsystem in a larger system. DIADS contains two
technical innovations. Problem diagnosis involves reconstructing
system behavior at various points of time using historic and current
monitoring data collected from the system. However, the amount and
quality of monitoring data available from production systems is
constrained by the need to keep monitoring overhead low. DIADS uses an
abstraction called Annotated Plan Graph to represent and reason about
database behavior in the context of a larger system. Annotated Plan
Graphs are generated from light-weight monitoring data.

The other innovation in DIADS is a suite of workflows for
administrative tasks that combine machine-learning techniques with
domain knowledge from system experts. For example, for problem
diagnosis, the machine-learning part of the workflow provides core
techniques to handle large and noisy streams of monitoring data, while
the domain-knowledge part acts as checks-and-balances to guide the
diagnosis in the right direction. This unique design enables DIADS to
function effectively even in the presence of multiple concurrent
problems as well as noisy monitoring data prevalent in production
environments. DIADS is being prototyped for research and educational
purposes in a datacenter setting with PostgreSQL databases and an
enterprise-level storage area network.

For further information see the project web page at
http://www.cs.duke.edu/~shivnath/diads.html